Quantitative Insight into Responses of Cell Populations to Radiation Exposure

Hanin
0109895
The goal of the project is to gain a new quantitative
insight, on the basis of advanced mathematical methods, into
kinetics of biological processes in irradiated cell populations.
The investigator formulates and analyzes a comprehensive
mechanistic mathematical model of these processes, including
formation of radiation-induced lesions and their repair,
misrepair and fixation, cell cycling and cell death. Mathematical
modeling techniques include general age-dependent branching
stochastic processes, queueing systems, stochastic simulation,
and modern methods of statistical inference. Parameters of the
model are estimated from experimental data on kinetics and
survival of cells in synchronized cultures of S3 HeLa and V79
cells exposed to continuous irradiation at various dose rates.
Parameter estimation is based on a comprehensive stochastic
simulation model of the underlying biological processes and on
methods of stochastic optimization in the maximum likelihood
setting. The model is applied to stationary and exponential cell
cultures that serve as experimental counterparts of tumor cell
populations at different stages of tumor development. The
distribution of the number of surviving clonogenic cells at the
end of radiation exposure, obtained from the comprehensive
simulation model of cell population kinetics, is compared with
explicit formulas for this distribution within simpler birth and
death Markov models that resulted from the preliminary studies.
The most important biological outcome of this work consists of
the set of estimates of unobservable model parameters, which are
interpretable in biologically appealing terms of repair processes
and cell kinetics. The project has a significant impact on
evaluation, prediction and optimization of the efficacy of
radiation cancer treatment and associated methods of cure rate
estimation.
A remarkable progress in cell biology and radiation biology
since the 1920's has resulted in a prodigious amount of
experimental data comprising all aspects of cell responses to
ionizing radiation. These data represent an invaluable source of
information for furthering our knowledge about intracellular
processes in normal and irradiated cells. However, to a large
extent, this gold mine of experimental findings amassed over
years remains unclaimed. The investigator and his collaborators
attempt to understand and describe mathematically the most basic
processes in normal and irradiated cells. This is accomplished on
the basis of advanced mathematical, statistical and computational
methods applied to the original experimental data describing
responses of several cell lines to radiation exposure at variable
dose rate. The project was triggered by and has far-reaching
implications for cancer radiotherapy.